A Distributional Analysis of Black-White Earnings Gaps: 1963-1992

9320830 Rogers This research is in the planning stage. It is funded under the Minority Research Planning Grant. The empirical study seeks to look at the effect of changes in the general degree of wage inequality in The United States economy . The basic question being addressed is whether the sources of the black white male earnings gap different in different segments of the distribution. The plan is to look for a widening wage gap across racial groups by disaggregating the data into finer categories, for example, within metropolitan areas, within industry-education cells, within industry-occupation cells, etc. in an attempt to explain the sources of these differences, or reconcile the several explanations that are currently offered in the literature. ***